Project ProBase

Project ProBase
Project Summary
Project ProBase (Problem-based technology curriculum) will develop an innovative
set of 8 secondary level, technology-rich curriculum units based on a validated set of
bridge competencies. The materials will be targeted for the 11th and 12th grade levels and
will be designed to develop a comprehensive technical foundation for post-secondary
community college technician education. The materials will be designed to be delivered
using a constuctivist approach that utilizes a series of technological problem solving
activities. ProBase will provide pre-technical high school students with a comprehensive
curriculum, designed to prepare them to enter community college technician programs.
ProBase will develop and field-test curriculum materials designed to fill the gap between
(a) the curriculum content standards developed at the national level (i.e., Standards for
Technological Literacy, the National Science Education Standards, and the Curriculum
Standards for School Mathematics) and (b) the entry-level knowledge and skills needed
by students entering community college technical education programs. This curriculum
will focus on core concepts identified in the Standards for Technological Literacy as well
as a set of Bridge Competencies identified by the Community College consortium
involved in the project. The materials will be produced and disseminated by the
International Technology Education Association.